COLLABORATIVE PROPOSAL: An Investigation of Wave Dynamics in the Arctic Mesosphere and Coupling Between the Lower and Upper Polar Atmosphere

The research objective is to utilize a suite of instruments, including
an airglow imager, to investigate short-period
gravity waves in the Arctic atmosphere over Alaska. Short-period
gravity waves are an important component of the larger atmospheric
circulation as these waves are believed to transport a large amount of
vertical moment flux into the mesosphere and lower thermosphere (MLT)
region. While the propagation nature and sources of these waves have
been studied extensively at low- and mid-latitudes, little is known about their behavior at high latitudes. Recent efforts have
begun to characterize the waves over the Antarctic continent, while
the project proposed here will focus on the Arctic. Specifically, the
proposed research will establish a long-term winter time series of
short-period gravity waves in the Arctic, including their dominant
source regions, and influences of large-scale tidal and planetary wave
motion. The co-located Rayleigh lidar will provide essential high
vertical resolution temperature measurements to help elucidate the
vertical wave propagation, individual wave contribution to the
Eliassen-Palm (EP) flux, and coupling between the lower and upper
atmosphere during stratospheric warming events.